Making Decisions about Collaboration with Humans and AI Systems

Artificial intelligence (AI) is rapidly transforming workplaces, educational settings, healthcare systems and other domains that require people to make decisions alongside intelligent systems. As people engage more frequently with AI technologies, understanding the cognitive and neural processes that support evaluation and collaborative decision-making becomes increasingly important. Decisions about collaboration depend on how we, as individuals, make judgements about those with whom we are interacting. This project investigates the neural and cognitive systems underlying these judgments, comparing how the brain responds when evaluating both human and artificial agents, and by examining how these responses predict later collaborative decision-making during problem-solving tasks.

This project will investigate how individuals form impressions of both human and AI partners and how these impressions predict subsequent decision-making and cooperative behavior. Functional magnetic resonance imaging (fMRI) will be used to measure neural activity associated with impression formation, social evaluation, and collaborative decision making. The research will test whether neural responses during initial evaluations predict later decision-making involving both human and AI collaborators. By integrating neuroimaging and behavioral methods, the project will provide a mechanistic account of the cognitive and neural processes underlying cooperation and decision-making in human-AI interactions.